The Polities of Natural History

In recent years, scholars have begun to explore how notions about gender have shaped the priorities, methods, and subject matter of science. While historians of science have studied many aspects of gender influences on science, there remains large areas that need to be explored if we are to understand the pervasiveness of these influences. Dr. Schiebinger is examining gender influences on what might be called the very skeleton of biological sciences--that is, its classification system. The studies of species, their relationships to each other and their evolution are dependent upon and reflected in the classification system. Dr. Schiebinger is examining how gender influenced the formative stages of natural historical classification. She argues that notions of gender lay at the heart of 18th century revolutions in views of nature. This interdisciplinary and historical study divides into three parts, dealing separately with the vegetable, animal and mineral kingdoms. Topics to be explored include: the social and political circumstances surrounding the sexualization of plants (a key event in the revolution in 18th century botanical taxonomy); the question of why (considering the alternatives) mammals are called mammals- -a term which in the 1750's supplanted the term quadruped that had been used since Aristotle; an analysis of the first scientific representations of primates; and a study of attempts to classify humans by race and by sex, a topic only recently of interest to historians of science. These developments are being considered in a context of broader social trends affecting the development of science.